Summer Program on Game Theory and Economics

Game theory uses the tools of formal logic and mathematics to understand strategic situations, analyze decision options, and predict outcomes. Game theory is widely used in economics and related disciplines, because many economic decisions involve strategic reasoning. This award funds the continued efforts of the Center for Game Theory in Economics to bring together U.S. students and researchers with the best scholars from around the world to stimulate and disseminate new research. The Center sponsors a series of summer workshops with topics from evolutionary biology to bounded rationality to adaptive learning. The workshops and the annual research conference bring together game theorists, economists, biologists, computer scientists, and applied mathematicians. Over half of the attendees are young scholars.